REU SITE: Analyzing Global Databases

This award provides renewed funding for a Research Experience for Undergraduates (REU) program at Columbia University's Lamont Doherty Earth Observatory (LDEO). The program will support ten students during a ten week summer research program. The program will include independent research projects by the students and participation in a semi-weekly summer lecture series on topics like scientific writing, science careers, ethics and data visualization. This program is not a field-based program, but students have access to global databases and excellent computer equipment. Students will be encouraged to publish in peer-reviewed journals and participate in national conferences following the summer research program. It will conclude with a written report and student poster presentations.